Bridge to the Doctorate at UMBC 2011-2013

The University System of Maryland (USM) Louis Stokes Alliance for Minority Participation (LSAMP) will
build upon its success of training and educating Bridge to the Doctorate (BD) Fellows by proposing
a program for a sixth cohort. The University of Maryland, Baltimore County (UMBC) is the lead institution
of a senior-level LSAMP and has been designated as the BD site for 2011-2013. UMBC is dedicated to
recruiting, retaining, educating, and training underrepresented students in science, technology,
engineering, and mathematics (STEM) fields, and preparing them for success in the STEM workforce.
UMBC welcomed its first cohort of BD Fellows in 2005. Three of those Fellows completed Ph.D.s during
2010-2011. Others from that cohort are persisting in doctoral programs (full-time and part-time) or have
received M.S. degrees and remain in touch with UMBC's BD Program as they plan to return for the
doctorate. (One 2005 BD Fellow is a Ph.D. candidate at the University of Utah, and another will begin the
D.Eng. program at Morgan State University in fall 2011.) The USM has four additional cohorts of fellows
on both the UMBC and the University of Maryland, College Park campuses. The Fellows connect with
one another at BD training, professional development, and community building events. The USM LSAMP
began in 1995 and has been vigilant about increasing the number of underrepresented minority
baccalaureate degree recipients in STEM disciplines. The BD award will enable us to strengthen both our
undergraduate and graduate pipelines and create an expanded community of scholars within these
disciplines.
Plans for the 2011-2013 cohort include activities that will begin during the fellows' first week on campus.
The program includes extensive orientation activities such as a 2-day Summer Success Institute, the
Graduate School Orientation, and multi-day orientations with faculty within the STEM departments. In the
first year, the Fellows will be assigned a Peer Mentor; apply for the NSF Graduate Research Fellowship;
receive training in public speaking; and complete a 30-50 page research preparation project that will
require them to network with other graduate students, faculty, and BD Fellows at universities outside of
the USM. Throughout the two years, BD Fellows will participate in bi-weekly BD meetings, attend
monthly Graduate Student Success Seminars, and participate in academic and professional development
seminars with other graduate students and faculty. By the end of the second year, the BD Fellows will
have learned and implemented methodologies for achieving academic excellence, completed credits for
the M.S. degree or early qualifying milestones toward the doctorate (varies according to department),
completed 10 hours of UMBC's "Professors-in-Training" modules, presented at two research conferences,
participated in numerous networking opportunities with faculty, attended workshops on thesis completion
and dissertation proposal planning, and developed a plan for persisting to finish the doctorate.